Presidential Young Investigator Award

This project is a Presidential Young Investigator Award. The research is concerned with planning and operation of large civil engineering systems with emphasis on transportation systems. The investigation will develop methodological and applied issues involving the measurement of nonlinear values and subjective probabilities using expert opinions.